A Kelvin-Probe Chemical Sensor for Hydrogen Sulfide Analysis

This Small Business Innovation Research (SBIR) Phase I project is in the general area of analytical and surface chemistry and in the subfield of sensor technology. The primary objective of this research project is research leading to proof of concept of a new gas sensor technology based on the Kelvin method of electronic work function measurement. The sensitivity of this technique to adsorbed gases will be augmented by the use of a gold-film active surface and elevated temperature operation to establish selectivity and extend the concentration limits of operation. Initially, a prototype sensor will be designed, built, and evaluated to determine the feasibility of the approach. Hydrogen sulfide will be used in the evaluation because of its importance as an industrial toxin, its strong interaction with gold, and the critical need for hydrogen sulfide sensors that continuously monitor wide ranges of concentration. The successful pursuit of this Phase I activity could lead to the commercialization of a new class of compact, cost-effective gas sensors permitting a degree of control of sensitivity and selectivity heretofore not possible. The potential flexibility of this technology could enable the development of a broad array of toxic industrial gas sensors that could penetrate significantly a market which is currently dominated by foreign interests.